Student Support at the 2017 American Meteorological Society (AMS) Annual Meeting; Seattle, Washington; January 22-26, 2017

Observations of atmospheric processes are vitally important to unraveling the complexities of weather and climate. In this award for conference support, students attending the 2017 American Meteorological Society's (AMS) Annual Meeting will be tasked with attending talks to collect data on the observations that are needed to advance the science. While it is not a comprehensive survey of the community, it is a large cross-cut that will provide scientists, government agencies, and policy-makers an additional data point when considering where observational needs are not being met.

The theme for the 2017 AMS Annual Meeting is "Observations Lead the Way". Special sessions have been convened to discuss observations and each of the speakers throughout the meeting have been asked to discuss what observations would best help move their scientific studies forward. This award will provide support for a large number of students to attend these sessions and then report their findings back to the AMS program committee. The committee will then bring the data together and disseminate the information through a journal article and documents for funding agencies and policy makers.